SBIR Phase I: Value-Driven Design Debt Management for Contemporary Software Systems

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project will design a value-driven design debt management system applicable to modern, distributed, dynamic software systems. This system will pinpoint and quantify design debt and recommend the most eﬀective debt-reduction strategies. This system will also support risk analyses for managers and designers, helping them choose a strategy that prevents severe decay in product performance, and maximize product value, productivity, and quality.

This Small Business Innovation Research (SBIR) Phase I project provide a value-driven, design-debt management system that (1) discovers and empirically validates design debt in modern distributed and dynamically-typed software systems based on options theory, Conway's law, and design principles, leveraging a knowledge graph to capture and manage implicit, heterogeneous, and distributed entities and relations; (2) discovers the intrinsic and implicit relations among multiple design anti-patterns and creates an algorithm to prioritize and recommend the most effective debt-reduction strategies; and (3) bridges the gap between development and management, enabling a user to simulate refactoring outcomes and evaluate their economic implications by combining Monte Carlo simulation and Datar-Mathews option valuations, for each proposed refactoring strategy. The outcome of these research and development activities will lead to the first framework specialized for managing technical debt at the design and architecture level, rooted in financial and design theory, and applicable to modern distributed and dynamically typed software systems. This project has the potential to fundamentally change the management of software, supporting better informed, data driven decisions by focusing on their economic values.